Preparing for the New College Mathematics: An Innovative High School Course

Introduction to College Mathematics, a new advanced high school course in mathematics developed at the North Carolina School of Science and Mathematics, will be disseminated to other teachers in a variety of ways. It will be prepared for conventional distribution as a published book, but particular emphasis will be placed on a variety of networking techniques to acquaint teachers with the material and support them during its introduction into use. One group of teachers beginning use of the course will use the MATHLINK network to interact with each other as they try the new material. Other groups will attend summer workshops at the school, following which they will form a SHARETEXT network. One of the special activities of this networked group will be to explore use of super calculators in teaching the course material. Newsletters will also be used to link the teachers. Some of the teachers will be selected and trained as leaders to introduce the course to more teachers. The various forms of networking will be evaluated to provide guidance which can be used in planning introduction of new teaching materials and curricula in general.